Workshop on the Technical Feasibility of a Seafloor Geomagnetic Observatory

9421712 Chave This award provides partial funding in support of a workshop on the technical feasibility of establishing seafloor geomagnetic observatories to be held at the Woods Hole Oceanographic Institution. The workshop will convene a small group of U.S. and international experts in geomagnetic field observation in order to focus on measuring the geomagnetic field variations with ocean bottom instrumentation, power supply to ocean bottom observatories, and methods of data retrieval. The participants are committed to writing a report describing the technical options and their cost estimates. ***